Bayesian Methods for Multiple Sequence Alignment and RelatedStatistical Problems

9501570 Liu Abstract (technical) Multiple sequence alignment is crucial in research on the structure and function of gene products, through promoting the detection and description of sequence motifs; aiding efforts at protein modeling, structure prediction and engineering; and shedding light on molecular evolution and phylogeny construction in molecular systematics. We recently presented new local alignment algorithms (Lawrence et al. 1993, 1994) based on Bayesian modeling and Gibbs sampling. In this project, we propose to develop several extensions of our original Bayesian model to accommodate various practical situations, and to investigate several statistical problems arisen from our study of the alignment problem. On the applied side, we wish to accomplish the following: (1) relax the existence assumption and develop Bayesian models to simultaneously detect and align the common multiple motifs in the sequences; (2) combine the idea of Markovian structure modeling of sequence data (e.g., hidden Markov Model) with the block-based method of Lawrence et. al. (1993) to enhance the alignment of multiple motifs; (3) modify and apply the methodology developed previously and in this project to several other important biological problems: the detection of subtle sequence signals in noncoding DNA region; the prediction of protein secondary structures; and the combination of threading and alignment. On the theoretical side, we attempt to (4) understand the nature and potential of predictive updating in connection with the bootstrap, the Bayesian bootstrap, and general nonparametric problems; (5) develop model selection criteria that are useful for determining pattern width in alignment problems; (6) study the influence of prior specifications on the results and frequency properties of these results in Bayesian classification problems; and finally, (7) study convergence properties of several sampling algorithms. During the award period, I will develop my own styles on teaching introductory probability and statistics courses with an emphasis on statistical thinking, and get involved in a program designed to attract talented undergraduates into our field. I will also make an effort to develop new graduate level courses on current research areas such as image processing, missing data, Markov Chain Monte Carlo, genetics and biology. My guideline for directing graduate students is: independence, connections, and creativity. 9501570 Liu Abstract (nontechnical) A wealth of data concerning life's basic molecules, proteins and nucleic acids, has emerged from the biotechnology revolution. The human genome project has accelerated the growth of these data. Multiple observations of homologous protein or nucleic acid sequences from different organisms are often available. However, since mutations and sequence errors misalign these data, multiple sequence alignment has become an essential and valuable tool for understanding the structures and functions of these molecule, aiding efforts at protein modeling, structure prediction and engineering; and shedding light on molecular evolution and phylogeny construction in molecular systematics. Traditional algorithms for finding such alignment are either too computationally expensive so as to limit their applications or too heuristic so that the sensitivity to subtle patterns is lost. We recently presented new local alignment algorithms (Lawrence et al. 1993, 1994) based on a probabilistic model of the sequences and a stochastic simulation technique called the Gibbs sampler. In this project, we propose to develop several extensions of our original probabilistic model to accommodate various practical situations, and to investigate several statistical problems arisen from our study of the alignment problem. On the applied side, we wish to accomplish the following: (1) relax the existence assum ption and develop more general mixture models to simultaneously detect and align common patterns in multiple homologous biological sequences; (2) investigate the connection between our method and other successful approaches such as the hidden Markov modeling; (3) modify and apply the methodology developed previously and in this project to several other important biological problems: the detection of subtle sequence signals in noncoding DNA region; the prediction of protein secondary structures; and the combination of threading and alignment. On the theoretical side, we attempt to (4) understand the nature and potential of the predictive updating, a new iterative simulation method, in connection with the bootstrap, the Bayesian bootstrap, and general nonparametric problems; (5) develop model selection criteria that are useful for determining pattern width in alignment problems; (6) study the influence of prior specifications on the final alignment results; and finally, (7) study convergence properties of several stochastic simulation algorithms. During the award period, I will develop my own styles on teaching introductory probability and statistics courses with an emphasis on statistical thinking, and get involved in a program designed to attract talented undergraduates into our field. I will also make an effort to develop new graduate level courses on current research areas such as image processing, missing data, Markov Chain Monte Carlo, genetics and biology. My guideline for directing graduate students is: independence, connections, and creativity.